Student Travel Support for ACM SIGCOMM 2000; Stockhold, Sweden; August 28- September 1, 2000

The 2000 ACM SIGCOMM Conference on Communications Architectures, Protocols and Applications will be held in Stockholm, Sweden, from August 28 September 1, 2000. This conference is the premier technical meeting that examines the state-of-the-art in computer networks and communications. This proposal requests funding to assist 18 United States-based graduate students in attending this meeting. Participation in conferences such as SIGCOMM is an extremely important part of the graduate school experience, providing the opportunity to interact with more senior researchers and to be exposed to leading edge work in the field. The support requested in this proposal will enable the participation of students who would otherwise be unable to attend ACM SIGCOMM 2000.